Cooperation and Conflict in the Legume-Rhizobium Symbiosis

Legumes, such as clover, alfalfa, and soybean, are important in agriculture
and in nature. Soil bacteria known as rhizobia can benefit legumes when
they infect their roots, because they can take up atmospheric nitrogen and
supply it to the plant. This extra nitrogen increases plant
photosynthesis, thereby indirectly increasing the energy supply to the
rhizobia. Thus, symbiosis between legume and rhizobium seems beneficial to
both. But what if, as often happens, two or more different strains of
rhizobia infect the same plant? An initially rare strain that uses plant
resources for its own reproduction, rather than for nitrogen fixation,
could increase in numbers at the expense of both the plant and the more
cooperative rhizobial strain. Although most rhizobia seem to be
predominantly beneficial, such "parasitic" strains do exist.

This research will determine whether plant responses to rhizobia that fail
to fix nitrogen can select for more beneficial rhizobia. Previous research
shows that legumes can control the oxygen supply to rhizobia inside their
root nodules. The PIs will determine how this oxygen supply changes with
changes in nitrogen fixation by rhizobia, and how this legume response
affects the survival and reproduction of the rhizobia. Most of the
research will be conducted under controlled laboratory conditions, but a
field test will determine whether legumes alter the frequency of
cooperative vs. parasitic rhizobia in soil. In addition to possible
practical applications in agriculture, the research will contribute to
overall understanding of the general problem of cooperation between
species. Such cooperation is critical to the pollination of flowers, the
survival and growth of coral reefs, plant growth in phosphorus-poor soils,
and many other natural systems.